Minority Graduate Research Honorable Mention: Paula C. Jackson

This special award will give Ph.D. student Paula C. Jackson flexibility in pursuing her graduate studies and research initiation in Physiological Ecology. This award will strengthen minority research participation in this area.